Racial Differences in the Causes of and Responses to Political Alienation

Project Objectives: The primary objective of the project is to develop a competitive research proposal on "Racial Differences in the Causes of and Responses to Political Alienation". The proposed research will attempt to make a comprehensive analysis of the determinants and behavioral consequences of socially-based differences in political alienations. Broader Significance of the Project: Support of the project will assist a well trained black sociologist to improve his research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.